Research Experiences for Undergraduates in Physics and Astronomy

PHY-9731880- David Ellis, University of Toledo

The "Research Experiences for Undergraduates" in the Physics Department of
the University of Toledo will be continued. This program places eight
students each summer in the research programs of the Department, which cover a number of topics in Physics and Astronomy. The students will be given a number of opportunities to interact professionally. Available research fields include astronomy, astrophysics, atomic physics, biophysics, condensed matter physics, materials science, and optics. Student projects will include a written report and an oral presentation of results. Also, students will participate in a weekly seminar, with speakers including students, faculty, and visiting researchers. Students will be recruited nationally, and free housing will be provided, so that students from various regions can meet each other and broaden their view of the diversity of physics programs in the U.S. Group social activities and field trips will enhance students' overall experience.